Teaching Students to Visualize Molecular Structure

Molecular graphics provides state of the art training to undergraduates in biochemistry, plant science, genetics, chemistry, animal science and nutrition. Students' ability to understand the chemistry and function of molecules is enriched by experiments which combine laboratory experiments with graphics exploration of molecular interactions.